STTR Phase I: Variable Diameter Fiber Reinforced Biopolymers for Minimally Invasive Orthopedic Implants

This Small Business Technology Transfer (STTR) Phase I project proposes to develop a new composite to be used in hip replacements. The composite includes variable diameter ceramic fibers in bone cement.

The commercial application of this project will be in the field of orthopedics . The use of minimally invasive orthopedic implants, using injectable, polymer based biomaterials with high strength and stress resistance, will offer a new approach to treating orthopedic fractures and ailments.